Itasca Community College - STEM Scholarships for Project Based Learning

This project is providing need-based scholarships over a period of four years to STEM students at Itasca Community College (ICC). The major project activities include: developing and implementing a Project-based Learning cohort model within ICC Engineering, enhancing student professionalism through workshops, mentoring the S-STEM cohort, improving retention to degree achievement, etc. The project is expending recruiting efforts into a metro area with large populations of African American, Hispanic, Somali, and Hmong people. The Northeast Higher Education Office of Institutional Research is assessing the impact of the project. The project results are being disseminated in conjunction with the dissemination of the institution's NSF STEP project results.